Conference: Partnering for Impact Through Industry and Community Connections in Environmental Engineering Research and Education

This award will provide partial support for the Association of Environmental Engineering and Science Professors (AEESP) Research and Education Conference, which will be held May 18-20, 2027 at the University of Texas at Austin. The 2027 conference will be hosted by 10 Texas Universities. The conference will focus on five critical areas of research and education: (1) artificial intelligence and machine learning for environmental systems; (2) the water-energy-data center nexus; (3) critical minerals, critical materials, and sustainable resource recovery; (4) the circular water economy; and (5) emerging quantum sensing and computation for environmental applications. These themes are well aligned with NSF priorities. The conference programing includes plenary lectures, symposia, 16 workshops, concurrent technical sessions, 3 career-development panels, 2 poster sessions, a pre-conference Student Innovation Challenge, and a wildfire hackathon. The outcomes of the conference will be disseminated through a dedicated special issue of Environmental Engineering Science (EES), publicly archived workshop white papers with DOIs, recorded sessions, and a lessons-learned report delivered to the AEESP Board.

The 2027 conference will address a gap in the environmental engineering research enterprise: the need to accelerate translation between fundamental discovery, industrial practice, and community implementation across technical areas of national consequence. Rather than a traditional research meeting, it will function as partnership-formation infrastructure among academia, industry, and affected communities. The conference will also open the environmental engineering community to quantum information science - covering quantum computing and machine learning for process optimization and catalyst design, quantum sensing for subsurface imaging and groundwater monitoring, and quantum-secured communication for environmental infrastructure. Novel scholarship will be produced through a peer-reviewed EES Special Issue (targeting 20-25 articles), workshop white papers that include explicit research, education, and industry-academic engagement goals, and publicly accessible recorded proceedings. Pre-conference, post-conference, and 12-month follow-up assessment frameworks will map empirical outcomes one-on-one to conference objectives. The broader impact of the conference will include academic–industry and academic–community partnerships, workforce development, research-education integration, international partnership, broadening geographic participation.